Planning: Strengthening STEM Resources and Programming for Prospective Low-Income Scholars

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at Rider University. Over its two-year duration, this Planning Grant project aims to collect and analyze information from students and faculty to better understand current student circumstances, as well as their interests and unmet needs. The project will engage stakeholders to inform the design of a future S-STEM proposal. By gaining insights into the current student experience, the project team will be positioned to generate innovative and effective strategies to support prospective S-STEM scholars.

The overall goal of this project is to increase STEM degree completion of low-income, high-achieving undergraduates with demonstrated financial need. The specific project aims will support the project team in ascertaining the underlying factors that create disparate outcomes between Pell-eligible STEM students and non-Pell STEM students. The project team plans to (1) gather current student and faculty data to better understand their current circumstances,(2) identify and/or create data sources that inform a more holistic understanding of the college experience as it pertains to academically talented, low-income students, and (3) synthesize findings to generate effective strategies to close the gap for low-income students. In collaboration with the Carleton College Science Education Resource Center (SERC), the project will leverage comparisons with similar-sized institutions across the Mid-Atlantic region to further attainment of project goals. Results of this project will inform potential institutional change and will provide a model that can be adopted at peer institutions. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of low-income academically talented students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.